Doctoral Dissertation Research in Sociology

Having prestige has important consequences because successful claims to esteem often justify access to privileges, yet the concept of prestige has been neglected in empirical studies of social stratification. This doctoral dissertation project will study the processes of classification and aesthetic evaluation among popular music artists in Quebec, empirically testing the hypothesis that aesthetic judgment and artistic classifications define boundaries between people and function as mechanisms for permitting and prohibiting access to material and symbolic rewards. It will analyze how music and musicians are classified into categories, which criteria are used in doing so, and how prestige and artistic value are allocated among artists. Interviews will be conducted, and multidimensional scaling techniques will be used to determine to what extent the processes of artistic classification and evaluation reflect the more general processes of social stratification between people sharing a similar position in society and in the music industry. This project will contribute to the advancement of sociological knowledge by using techniques developed in studies of occupational prestige to create linkages between two subfields of sociology, the sociology of culture and stratification. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.